Integrated Sensitive Skin with Advanced Data Architecture

The primary objective of the proposed work is to investigate critical development issues to enable a two-dimensional sensor network called an artificial sensitive skin, with embedded integrated sensors and distributed signal-processing network. Specific technical objectives are summarized as follows. In the area of integrated sensors, the PI plans to develop efficient microfabrication technology to enable modular sensors with potentially high integration density. The benefit of a "skin" of multiple, distributed sensors can only be realized through the development and Implementation of signal processing architecture and algorithms. A scale-based distributed signal processing architecture will be developed and implemented for two sensor applications - tactile sensing and flow sensing. Integrated circuits need to be implemented under potentially limited and localized power supply in the sensor fabric. The PI proposes to develop low-power techniques for improving the energy efficiency of sensitive skin applications and demonstrate distributed error/noise tolerance techniques.